Continental Scientific Drilling Facility: Community Infrastructure for Studying the Subsurface

This award supports the operations and management of the Continental Scientific Drilling (CSD) Facility at the University of Minnesota. Many studies in Earth and Environmental science require access to soil, rock, water, and microbes below the ground surface. Drilled boreholes and core sampling provide access to these materials and allow installation of instruments below the surface that improve our understanding of Earth processes past and present. Drilling and core sampling can be complex and high risk, and the tools, instruments, and data systems needed are highly specialized. Each year, the CSD Facility helps to coordinate community research project development and provides tailored drilling, core sampling and analytic support for hundreds of scientific projects around the world.

The CSD Facility provides essential resources at every stage of a project for researchers to access the subsurface and collect samples for analysis. Drilling and coring are the primary means to access, measure, and monitor processes that occur at depth. These tools generate fresh, unweathered samples required for analysis to understand complex and interconnected Earth-life system processes through time. Boreholes provide access to the subsurface for measurements and instrumented observatories for long-term monitoring and sampling. The CSD Facility supports project development; logistics and contracting; field operations management; rental and sales of specialized equipment and supplies; core scanning, processing, and subsampling; sample preparation and analysis; education, outreach, and training; maintenance of repositories for core samples, data, publications, and reference collections; and the development of physical and cyberinfrastructure. Recent projects with CSD Facility support have addressed topics in hydrology, geomicrobiology, geochemistry, bolide impacts, tectonics, volcanology, magmatism, geothermal processes, critical minerals, fault mechanics, seismicity, and records of the Earth-life system. The CSD also plays a central role in coordinating the science planning efforts of the research community in both the U.S. and internationally.